Academic Research Infrastructure: Acquisition of an Automated VLSI Test Facility

9601519 Kraimeche, Belkacem Cooper Union Academic Research Infrastructure: Acquisition of an Automated VLSI Test Facility This Academic Research Infrastructure award supports the acquisition of an automated VLSI testing facility to support research in VLSI design and test engineering. The research projects supported by the equipment include ATM switching fabric designs for VLSI implementation, Systolic Array implementations of CODECs using innovative coding algorithms, and speech coding for wireless communications implemented in VLSI circuits.